Scientific Computing Research Environments for the Mathematical Sciences (SCREMS): A Computing Facility for Mathematical Science at UCI

The Department of Mathematics at the University of California at Irvine will purchase a Beowulf cluster of 32 (16 dual) Intel Pentium CPUs (connected with 1Gbic ethernet and operated by Linux) together with a SGI graphics computer. The computer equipment will be dedicated as a powerful distributed computing resource to the support of research in the mathematical sciences involving numerical studies of partial differential equations. This broad area of research will include in particular the following projects:

Microstructure evolution in a three-dimensional elastic system - Q. Nie and F. Wan
Numerical study of surface diffusion in three dimensions - H. Zhao
Computational study of the Navier-Stokes-alpha model - Q. Nie, K. Solna and E. Titi
Computaiton of harmonic maps - P. Li
Numerical studies for the Gauss curvature flow with flat sides - P. Daskalopoulos and R. Hamilton

In addition to new understanding for the problems in material sciences, fluid mechanics and geometry investigated, the results of these studies will provide important computational tools for many other important problems in science and engineering that require large scale computation